Collaborative Research: SaTC 2.0: RES: Achieving Reliable, Interpretable, and Efficient At-scale Machine Unlearning on Generative AI Models

Generative models like GPT and Stable Diffusion have significantly advanced the capabilities of artificial intelligence. Despite their impressive performance, these models can generate undesirable outputs, including private user data, copyrighted material, and inappropriate content. In response, machine unlearning approaches enable the removal of data influences and harmful concepts from pretrained models to comply with various regulations, including restrictions on NSFW content and the General Data Protection Regulation. However, significant challenges remain in machine unlearning, particularly regarding reliability and applicability. The project's novelties are developing a foundational understanding of the mechanisms of forgetting and establishing reliable criteria for regulating unlearning quality. The project's broader significance and importance are that the developed solutions shed light on key ethical concerns about generative models while informing the design of better unlearning methods. The project also seeks to deploy practical unlearning algorithms in real-world systems, including e-commerce and finance.

By establishing a formal and rigorous criterion for genuine forgetting and monitoring whether deleted knowledge re-emerges over time, this project creates a shared foundation for machine unlearning rooted in information theory and causal inference. Simultaneously, the research investigates the underlying mechanisms of forgetting in diffusion models and large language models. Inspired by research on the progression of Alzheimer's disease, the project introduces a novel task: dismantling high-level AI capabilities. This breakthrough approach offers a vital mechanism for steering future superintelligent systems. By bridging the gap between theory and practice, the project translates research advances into real-world applications. The implementation addresses the inefficiencies of frequent model updates by investigating batch processing, managing interdependence, and exploring in-context unlearning. Operationally, the system integrates advanced backend unlearning modules with an intuitive frontend visualization dashboard. This dual setup allows users to easily initiate data erasure requests and transparently track unlearning effects, thereby alleviating privacy and safety concerns associated with generative models.